A Combined Program for Research Experience for Undergrad- uates and Undergraduate Faculty Enhancement

This project will combine undergraduate students with undergraduate faculty into teams which will explore supercomputing through training and research. Undergraduate students will learn the principles of supercomputing and, with their faculty advisor, formulate and execute a research project. Undergraduate faculty will have the opportunity to investigate supercomputing and to integrate that technology and methodology into their curricula. Specifically, a four- week Summer Short Course, "Supercomputing Tools, Methodologies and Applications", will be given for students at Cornell University. Work on the research projects designed by the attending teams will begin during the course and continue throughout the subsequent academic year under the supervision of the faculty advisor with the continuing support of the Cornell National Supercomputer Facility (CNSF) staff. Progress will be monitored through a series of reports and at a midyear convocation of the participants. Technical support and supercomputer resources will provided by the CNSF. Administration will be handled through this project's nationally-derived Steering Committee. Instruction will be by qualified persons experienced in undergraduate education, especially with respect to computing and numerical analysis. By taking the unique approach of combining students and faculty to introduce the concepts and practice of supercomputing into the undergraduate experience, this proposal offers a special opportunity to those universities and colleges that may not have an emphasis on research or computing in their curriculum. By encouraging the integration of the materials provided through this program and the original courseware developed by participating faculty into the undergraduate curriculum, this program will stimulate the growth of undergraduate learning and interest in the technologies of computing and applications in research. In addition to the NSF grant, participants' institutions will provide about 15% in travel costs toward the operation of the project.